Enhanced Seismic Data Access System for the University of Texas Institute for Geophysics

The PI will acquire an automated digital storage system to improve the functionality and maintenance of the University of Texas Seismic Data Manage System and the underlying archive. The project will also address significant inefficiencies in seismic reflection by using the ame storage system to manage large input data sets and intermediate outputs.